Studies of Dynamical Selectivity

Professor Stuart Rice is supported by a grant from the Theoretical and Computational Chemistry Program to continue his theoretical research involving dynamical selectivity of molecular processes, particularly those which are related to product formation in chemical reactions. Such studies will help in the development of experimental techniques which influence the course of a chemical reaction through the use of pulsed laser excitation. Professor Rice will continue to refine and extend the Tannor-Rice scheme for controlling the selectivity of product formation in chemical reactions. He will also extend the recently developed Davis-Gray-Rice version of unimolecular reaction rate theory to systems with many degrees of freedom and the formulation of a quantum mechanical version of the theory. Finally, Rice will also continue his research examining the signatures of chaos in quantum mechanical systems.